Networking Communities

Networking Communities addresses the critical need for a well-trained work force with diverse skills in computer network technologies. Two Massachusetts community colleges are teaming with high school and industry partners to (a) develop and implement a nationally replicable model for infusing computer networking curricula into existing programs; (b) demonstrate a model for joint professional development of in-school information technology expertise, where high school and community college faculty are assisted by industry; (c) provide hands-on technical experiences for students, with special emphasis on creation of school network tech support teams and work experiences at local businesses and community organizations; and (d) encourage timely, widespread replication through national dissemination. At the community college level, the curriculum is specifically designed to conform to the industry-validated "Network Specialist" skill standards developed by the NSF/ATE-funded NorthWest Center for Emerging Technologies. At the high school level, students learn the basics of network technology as part of a school-to-work "career pathway" in Information Technology.